An Integrated Solid Mechanics Laboratory for Civil and Mechanical Engineering

Manhattan College is creating an Integrated Solid Mechanics Laboratory for the Departments of Mechanical and Civil Engineering. This funding supports the acquisition of a mechanical dynamic testing apparatus (Instron 8501) which is the cornerstone of the laboratory. This equipment supports five new experiments for an integrated laboratory course and also the advanced undergraduate courses in structures, soil mechanics, foundations, machine design, and the capstone design courses offered by both departments. This test equipment brings state-of-the- art capability to an important area of the undergraduate engineering curriculum at Manhattan College. This award is being matched by an equal sum from the grantee.